Travel: NSF Student Travel Grant for Cornell Maryland Max-Planck Research School (CMMRS)

This grant supports the Cornell, Maryland, and MPI pre-doctoral Research School (CMMRS), a week-long summer school held at the Max Planck Institute for Software Systems in Saarbrucken, Germany, August 2026. The CMMRS will introduce world-class research to students (undergraduate and masters), and engage them, one-on-one and in small groups, with leading researchers in the field. The 2026 CMMRS researchers span a wide range of areas, including computer systems, heterogeneous architectures, machine learning, data visualization, security and privacy, formal methods, and programming language design.

The summer school exposes students, early in their careers, to the breadth and diversity of computer science (in particular computer & network systems) research, potentially making them more likely to pursue doctoral degrees and eventually, careers in research. The support from this grant funds travel and accommodations for approximately 25 students from the United States to attend the summer school.